ITR: Ubiquitous Mobile Storage

One consequence of the phenomenal storage density improvement is the
emergence of highly compact disk storage that can be integrated into
various computing and networking devices of various shapes and forms.
Our conjecture is that mobile storage will become a dominant form of
storage in the near future, especially for personal user data,
subsuming conventional disks enshrined in server rooms. This proposal
describes a project that studies how to build, manage, and use
discrete storage devices to form ad hoc, distributed storage systems.

In this project, we propose to build system software to intelligently
coordinate the discrete storage elements. The system has four core
mechanisms: (1) a multicast-like data location mechanism, (2) an
invalidation mechanism for purging obsolete data from the system, (3)
a snapshot mechanism for supporting sharing and backup, and (4) a
storage level solution that can support existing file systems. In
this proposal, we describe how combinations of these four core
mechanisms allow us to achieve our consistency, transparency,
reliability, security, and performance goals.

Furthermore, the data management needs addressed by this project are
by no means limited to traditional desktop applications. As the data
management functionalities are separated from cumbersome generic
computing devices, and as these functionalities are cleanly
encapsulated in modular small form factor devices that can readily
interact with other consumer electronic devices (such as cameras, MP3
players, phones, and email devices), these application-specific
devices would be freed from the burden of having to solve and re-solve
a difficult mobile storage problem, and we may multiply the utility of
these devices and potentially foster new applications.